Inverse Problems and Scattering Poles

ABSTRACT
DMS-0070823

Under this grant, Stefanov plans to work in two areas: (1) Inverse Problems and
(2) Resonances (scattering poles). In the area of Inverse Problems, he plans to
study some inverse problems for partial differential equations and related
inverse problems in geometry. Some of the problems of interest are inverse
problems in anisotropic media. Mathematically, they lead to problems of
recovering a Riemannian metric from boundary data or scattering data. One
example is the inverse kinematic problem, where one has to recover a Riemannian
metric in a bounded domain from the lengths of geodesics connecting each two
boundary points. This problem has natural applications in geophysics and is
closely connected to the inverse problem of recovering a metric from the
associated hyperbolic Dirichlet-to-Neumann (DN) map on the boundary. The PI
plans to study this problem for larger classes of metrics than already known and
to prove also stability estimates. The related linearized problem - recovery of
tensors from integrals along geodesics will also be studied. The PI will also
work on the (elliptic) anisotropic inverse boundary value problem. The
possibility of developing an abstract approach to obtaining conditional
stability estimates will be also studied and the PI plans to find sufficient
conditions that would guarantee that one can derive a stability estimate (and
therefore uniqueness) directly from the injectivity of the linearized problem.
The PI will also conduct research in the area of resonances (scattering poles).
The PI plans to study some physical systems where one can construct non-real
quasimodes and to show that those quasimodes are close to resonances not
converging to the real axis. Two such systems are the transmission problem and
scattering by a strictly convex obstacle.

The motivation for this project comes from its possible applications. Inverse
Problems have numerous applications to geology, medicine, non-destructive
evaluation of materials, etc. The anisotropic inverse problems are related to
recovering parameters of media with properties (conductivity, wave speed, etc.)
depending not only on the position but also on the direction. Conditional
stability estimates show that small changes of the parameters of the system lead
to small changes in the measured data under additional assumptions usually
requiring sufficient smoothness of the coefficients. This demonstrates that the
corresponding inverse problem is conditionally well-posed. Resonances arise
naturally as resonance frequencies for systems in unbounded domains. They
correspond to peaks in the measured data. For some systems, we plan to describe
the asymptotic distribution of the resonances in some neighborhood of the real
axis, which provides computational and qualitative tools for understanding those
systems.